An Innovation in Prediction of Transient Sound Radiation

9414424 Wu This research project focuses on the development of an innovative technique calculate transient as well as steady-state acoustic radiation from an arbitrarily vibrating object moving in the proximity of a solid, stationary surface. With this method, engineers involved with the design of automotive components such as side panels, hoods and oil pans are able to explore alternative designs for minimizing the noise levels and satisfying the pass-by noise requirements SAE J986, J1470 and ECD51. The approach uses an explicit form of solution for the radiated acoustic pressure in the frequency domain in terms of the normal component of the velocity distribution on the surface of an object via the Kirchhoff integral theory. The time-domain signal is obtained using an inverse Fourier transformation. The effect of sound scattering from a nearby solid, stationary surface is accounted for by rising the image source method. Although the technique is of immediate value to automotive industry, its applicability is much broader since it deals with acoustic radiation from an arbitrarily vibrating object. ***